Beyond Perception: The Experience of Risk in an African American Community

Beyond Perception: The Experience of Risk in an African American Community The consequences of chronic, long-term environmental contamination can be devastating to individuals. Extensive research has been done to quantify the effects of exposure in such setting as well as the perceptions of this exposed. What has been less thoroughly examined are the more qualitative consequences of long-term exposure to contaminants on individuals' perceptions of themselves and their communities. In this research project, the PI s will gather qualitative data from the primarily African American residents in a heavily polluted site in Georgia. This research will provide a more complete understanding of what the experience of exposure to environmental contaminants entails - integrating the quantitative measurements of perceptions with more narrative and personal descriptions of life in such situations ó ªñ+ú^ó|úñ +▒+¬ ó ¬ñ«¬^áúú¬^|+ñ +▒+¬ ó ¬ñ«¬^áúú¬^¼»| +▒+¬ ó ¬ñ«¬^áúú¬^¼º¬ññ +▒+¬ ó ¬ñ«¬^áúú¬^Ñ|¡¬ +▒+¬ ó ¬ñ«¬^áúú¬^Ñ¿«ñ +▒+¬ ó ¬ñ«¬^áúú¬^½¿░ +▒+¬